Ice-Radar and Satellite Remote-Sensing Studies of Glaciers and Ice Sheets

This award is for support of a 3 year project to establish an REU site at St Olaf College to involve undergraduates in ice-radar and satellite remote-sensing studies of glaciers and ice sheets. In addition to on-going work on radar data obtained from field studies of ice streams in West Antarctica and glaciers in Washington State, this project will use radar and satellite imagery information to help improve models of ice stream flow. In addition to the laboratory work, the students involved in this project will participate in field work on the South Cascade Glacier, Washington. This work is in collaboration with glaciologists at NASA-Goddard and the University of Chicago at no cost to this grant.